Acquisition of Equipment for High Through-Put Biomarker Analyses at Brown University

Funds are provided to upgrade gas chromatograph facilities at Brown University that will allow high-resolution studies at Uk-37 and other organic paleoenvironmental proxies and biomarkers. The new configuration will allow through put of 110-125 samples, instead of the present 40-50 analyses. The University will cost share 30% of the total request. The new will result in improved productivity for the PI and other investigators at Brown engaged in serveral marine geological projects.